Engineering Research Equipment: Quantitative Image Process-ing System for Darkfield Microscope

Progress has been made on analyzing micelle coagulation in a biological system (milk). Using a Zeiss IM, darkfield microscope with TV monitor, camera, and microflash, particles as small as 0.095 micron were detected when the proteolytic enzyme rennet was added to diluted milk, and the time course of coagulation was observed. For this project, Zeiss IBAS image processing system will be used to attach to the darkfield microscope already in place in his laboratory. The system will allow particle sizes to be determined, enhancement of images from the darkfield microscope (increasing resolution), and analysis of these images. After image enhancement, the geometric shape factors for the model simulation can be calculated. Comparison of these shape factors for the actual flocs and the simulated flocs will test the applicability of theoretical models.